Phosphorylation of Transcription Factors

The regulatory effect of phosphorylation on a plant nuclear factor, GBF-1 from Arabidopsis, that affects expression of light-inducible genes is the focus of this study. Characterization of this phosphorylation reaction, from broccoli nuclear extracts, and its biological significance will be the main emphasis. Cloned GBF-1, overexpressed in bacteria, will be used as substrate for the kinase, and stoichiometry of phosphorylation, identification of phosphorylated amino acids, and mapping of phosphorylation sites will be examined with purified kinase. In vivo studies of light effects on phosphorylation of GBF-1 will also be undertaken as part of the study of light-responsive gene expression.